Third Mississippi State Conference on Differential Equations and Computational Simulations, May 16-17, 1997

9707261 Shivaji The Third Mississippi State Conference on DIFFERENTIAL EQUATIONS & COMPUTATIONAL SIMULATIONS will be held May 16 and 17, 1997 at Mississippi State University. There are nine invited principle speakers. These are: Walter Allegretto, University of Alberta, Canada, Microsensor Analysis and Simulation Jerry L. Bona,University of Texas, Stability and Instability of Solitary Waves and Associated Singularity Formation Djairo de Figueiredo, University of Campinas, Brazil, Decay, Symmetry and Existence of Positive Solutions of Semilinear Elliptic Systems S. Godunov, Sobolev Institute of Mathematics, Russia, Spectral Stratification in Models of Finite Elements for Elliptic Problems Anthony Jameson, Princeton University, Title to be announced Jean Mawhin, Universite de Louvain, Belgium, Floquet Boundary Value Problems for Nonlinear Differential Equations: A Blend of Topology and Symmetry Stanley Osher, University of California, The Level Set Method: What's In It For You? Klaus Schmitt, University of Utah, Bifurcation Problems for Variational Inequalities Joseph Shang, Wright Patterson Air Force Base, High Resolution Schemes for Computational Electromagnetics in the Time Domain This interdisciplinary conference will provide a joint forum where mathematicians, scientists, and engineers from academia and industry can exchange research ideas involving theoretical and applied developments in differential equations and computational simulations. In addition to the nine principal lecturers, there will be sessions of contributed talks. This conference is held bi-annually. Reviewed manuscripts will be published as a special issue of the Electronic Journal of Differential Equations. Information on the conference is available on the conference home web page: http://www.msstate.edu/Dept/Math/conf.html